National Nuclear Physics Summer School

The National Nuclear Physics Summer School (NNPSS) brings together
leading researchers to lecture on their specialties to advanced
graduate students and post-doctoral research associates in experimental
and theoretical nuclear physics. The overall goal of the NNPSS is to
provide students with a reference frame for defining critical problems
of nuclear physics and the most useful methods of analysis of the
problems. The intent is to broaden the students' appreciation for and
interest in the field of nuclear physics, while also strengthening them
technically. In bringing students togther from different parts of
nuclear physics, the NNPSS also plays an important role in building a
nuclear-physics community, i.e. the school often is the first
opportunity for young researchers to interact across subfields and to
network with their peers.

The NNPSS is organized and hosted each year by leading nuclear
physicists at major universities and national laboratories. The site
of the NNPSS is moved each year so that on average participating
students travel similar distances over the lifetime of the schools.
The NNPSS is governed by a national steering committee, appointed by
the Executive Committee of the Division of Nuclear Physics of the
American Physical Society. The Principal Investigators work with the
steering committee and with the organizers to facilitate the annual
schools.